Laser Surface Mapping system for Quantitative Orientation and Morphologic Data from Alvin and ROVs

This project will construct a Laser Surface Mapping System (LSMS) for use on ALVIN or ROV's such as Jason. The LSMS can provide detailed, quantitative orientation and morphometric data on a wide variety of seafloor features. A laser line scanner rapidly produces a digital z-y-z map of targeted surfaces from which 3-D images can be produced. It is intended that this tool will become a part of the permanent array of equipment that will be available to users of deep-submergence systems.